Evaluation Techniques for Hypercube and MIN-Based Architectures

Feng Hypercube and multistage interconnection network (MIN)-based architectures are two promising classes of parallel computers that have received considerable attention in recent years. The objective of this research is to develop analytical evaluation techniques for predicting performance, dependability, and performance-related dependability behavior of these two classes of multiprocessors. The performance model is based on a three-level approach - network level, task (job) level, and system level. The network level analysis gives the average communication delay which can be used in finding job completion time at the task level. Using the job completion time, system level parameters such as throughput and response time could be computed from an appropriate queing model. Dependability analysis would consider the degradation of the computing elements and communication network for finding task-based reliability or availability. The dependability model is aimed at finding a proper subcube for the execution of a task. The analysis covers both unique-path and multi-path MINs. Performance-related dependability models are being developed by associating suitable performance measures with the structure states of a multiprocessor. This project will make available a complete set of tools for analyzing these two classes of multiprocessors that have a great promise for different applications.